Collaborative Research: Conference: SaTC: NSF Security, Privacy, and Trust in Cyberspace 2026 PI Meeting Organization

The Security, Privacy, and Trust in Cyberspace (SaTC) program, a flagship initiative by the National Science Foundation (NSF), addresses critical cybersecurity challenges from a socio-technical perspective. By delving into deep scientific and engineering issues and considering human behaviors, SaTC aims to advance the field of cybersecurity and privacy. Given the escalating national significance of cybersecurity, effective communication between program officers, researchers, and government funding agencies becomes paramount. A robust SaTC community will drive innovation, identify novel research avenues, prevent duplication, and enhance graduate education opportunities.

This project encompasses the 2026 SaTC PI meeting venue and conference logistics, including registration, audio-visual support, communications, and meeting space in College Park, Maryland. The planning date for the conference is August 6-7, 2026. The 2026 SaTC Principal Investigator (PI) meeting will help as follows. 1) Stimulating research ideas: By bringing together PIs working on different projects, the meeting encourages cross-pollination of ideas. Discussions, workshops, collaborative sessions, and networking opportunities foster creativity and may spark novel research directions. 2) Exploring new opportunities: PIs can explore interdisciplinary collaborations beyond their immediate domains. Interactions between researchers from different disciplines can yield new insights, foster synergies, and prevent redundancy in existing research efforts. 3) Transitioning Research into Practice: Sharing experiences and learning from others helps PIs refine their research approaches. Practical insights gained during the meeting contribute to more effective research outcomes.